Algebra for Digital Design Derivation

This research is on conceptual structures used in IC and digital system design. It explores aspects of digital design in a functional algebra, a theory chosen for its simplicity, its power and its affinity to digital hardware description. Fundamental abstractions of digital engineering are formalized in order to expose principles for integrating methods and tools. Research is on obtaining correct implementations through a sequence of algebraic transformations on a specification. The synthesis algebra is being automated, providing a toll for interactive digital design derivation. Experimentation with the algebraic approach to synthesis is being pursued. Also, various decompositions of design are considered with the object of distilling general principles for the integration of engineering methods and tools.